Scholarships for Excellence in Natural Sciences (SENS)

Scholarships for Excellence in Natural Sciences (SENS) is supporting academically talented and financially needy minority students. The program is providing academic support to undergraduates to persist until degree achievement and graduate school/job placement assistance upon graduation. The recruitment and selection of STEM Scholars involves the PI's, faculty, counseling and financial aid staff, and recruiters. The scholar cohort has access to comprehensive career counseling and research mentoring, and support for attendance at conferences. The project is producing better prepared, competitive, and productive graduates for the STEM workforce and establishing a pipeline of quality students into graduate and professional programs.